Digital Document Processing Laboratory System

This project provides undergraduate students in computer engineering, computer science, and electrical engineering the opportunity to design, implement, and test the significant elements of office automation systems used to process documents in digital form. It provides the necessary equipment to augment a new digital image processing laboratory. Scanners, displays, printers, and array processors, working in conjunction with new and existing PC/AT-type computers, enable the students to capture, display, process, and print hard-copy data. This equipment is used primarily by students in a new undergraduate Computer Engineering concentration called Digital Document Processing. It also provides the electrical engineering students additional laboratory facilities in their digital signal processing concentration. Computer Science students use the instrumentation to provide laboratory experiences augmenting previous optional hardware courses. This award is being matched by an equal sum from the grantee.